The World of Birds: New Dimensions in Interactive Natural History Exhibits

The Los Angeles County Museum of Natural History will construct a new 9,000 square foot Bird Hall utilizing interactive exhibitry in a unique combination with original mounted specimens. The exhibition will cover avian biology in a comprehensive fashion, including the physiology of flight, adaptation, behavior, ecology and species diversity as well as traditional systematics. The exhibition will be directed at all levels of visitors, from small children to well informed adults; birds represent a familiar and powerful vehicle through which modern biology can be presented. A broad range of educational techniques will be used, including specimens, interactive exhibit stations, electronic media, and modern walk through habitat groups. Substantial formative evaluation and audience surveys will precede detailed design and construction, and leading ornithologists will serve as advisors and consultants. More than 80% of the total $3.2 million cost of exhibition development will come from county and private sources, and the exhibition will be seen by more than 1,000,000 visitors a year.